GOALI: Development and Evaluation of Innovative FRP Braided Fabric for Strengthening Infrastructures

CMS 9906404
PI: Nabil F. Grace
Development and Evaluation of Innovative FRP Braided Fabric for Strengthening
Infrastructures

The use of fiber reinforced polymer (FRP) sheets and strips as strengthening
materials for concrete structures has been gaining the interest of many
researchers and a few contractors during the last two decades. However, the
lack of ductility in these materials and the corresponding catastrophic
failures of strengthened structures reported in several research investigations
have contributed to the lack of confidence in composite materials for
structural engineering and the subsequent delay in using them for the
strengthening/stiffening of concrete structures in the United States. It has
become impossible to convince practicing structural engineers to recommend the
use of these materials to their clients. This is to be expected, since
structural engineers are very conservative and are accustomed to structures
that dissipate considerable energy before failure. Since ductility, combined
with the safety of occupants, is the basic ingredient of any successful
strengthening/stiffening project, only a handful of contractors has considered
the use of FRP materials. As a result, the use of currently available FRP
materials in strengthening or stiffening applications in industrial facilities
and highway bridges has been very limited in the United States.

To solve this problem, an innovative design of new FRP sheets needs to be
introduced and evaluated in both laboratory and field. This will require
extensive collaboration among: (1) FRP fabricators (i.e., composite industry
that includes both producers of carbon, aramid, and glass fibers and epoxy
adhesives), (2) contractors (construction industry), (3) academia, and (4) end
users (structural engineers). The proposed study will be conducted with
collaboration among Lawrence Technological University (LTU), DFI Pultruded
Composites (DR), Baker Concrete Technologies Ind. (BCT), and Ohio Department of
Transportation (ODOT).

The study will consist of four phases. The first phase will address the
development of an innovative threeaxis braided FRP fabric that will be
fabricated using a combination of carbon, aramid and glass fibers oriented in
three different directions. These sheets will differ from the currently
available, ineffective unidirectional and woven single fiber-type sheets, which
have been evaluated at LTU and found to lack the necessary energyabsorbing
capability. The developed fabrics will provide ductile rather than brittle
failure of strengthened structures. The interlocking mechanisms between the
braided carbon, aramid, and glass fibers in the three axes will ensure
redistribution of the flexural and shear loads. This phase will also include
the determination and optimization of the mechanical properties of the braided
sheets and a selected epoxy adhesive. This phase will be completed by DFI and
LTU.

The second phase will deal with the construction, instrumentation and
strengthening of simple, continuous, and cantilever test beams. The developed
FRP braided fabric and the selected epoxy adhesive will be used for
strengthening these beams. This phase will be completed by collaboration
between the FRP producer, LTU, and the contractor. In the third phase, the
strengthened test beams will be transported to the Structural Testing Center
(STC) at LTU and the research team will conduct various environmental/loading
tests. During phase four, results from the first three phases will be deployed
into a practical application in the state of Ohio by ODOT.

This collaboration will be extended to teaching and seminar activities. The FRP
producer, strengthening contractor, and state engineers will be guest lecturers
at LTU. The university research team and the industrial partners will provide
seminars at the annual meetings of the Associated General Contractors of
America (AGC) and at meetings of the Great Lakes DOTs Consortium. Collaboration
between university and industry will result in the development of an innovative
FRP material for strengthening deficient concrete structures. The level of
confidence achieved by these activities win lead to the widespread use of this
stateofthe art technology.